Representation Theoretical Methods in the Theory of Special Functions

This research is on the Theory of Symmetric Functions and its
applications to Representation Theory and Combinatorics. The
connection between Representation Theory and the Theory of
Symmetric Functions is provided by the Frobenius map which
relates group characters to symmetric functions. Combinatorics
plays a role in that multiplicities of irreducibles are often
obtained by counting tableaux, paths, trees and a growing variety
of newly emerging discrete structures. In the more than ten years
since its discovery, the Macdonald basis has progressively emerged
as a central element in these connections. For more than a decade
of research in the Theory of Macdonald Polynomials, the
investigator and M. Haiman have been led to a variety of
conjectures in Representation Theory, Algebraic Geometry,
Combinatorics and Symmetric Function Theory. Efforts in proving
these conjectures have yielded fundamental facts and methods in
each of these areas. More recently the investigator discovered a
variety of summation formulas (PNAS V. 98 (April 2001) 4313-4316)
which permitted the proof of the first significant positivity
result in the Theory of Macdonald Polynomials. In joint work with
J. Haglund the investigator proved a beautiful combinatorial
formula (conjectured by J. Haglund) for a rational function which
had come to be known as the $q,t$-Catalan. The investigator in
collaboration with students and associates plans to use his
recently discovered symmetric function identities for a direct
attack of some of the conjectures that are still unresolved.

The Theory of Symmetric Functions is a powerful symbolic
manipulation tool. The reason for this is that non linear problems
may often be linearized by the introduction of an infinite number
of variables. Now it develops that the change of bases matrices
of Symmetric Function Theory may be used to "mimic" the presence
of infinities within a finite device, thereby permitting the
linearization and solution of many a computational problem.
Discoveries in the theory and applications of symmetric functions,
should also turn out to be of significant impact in the various
areas of mathematics in which symmetric function methods have been
shown to be effective. This given, we can see how important it is
to pursue investigations in the Theory of Symmetric functions
that extend and deepen the computational power of the theory.
This is the foremost goal of the present project.